U.S.-Japan Joint Seminar: Third Japan-U.S. Manufacturing Research Exchange/July 1990/Nisshin, Japan

This award will support the travel of twelve U.S. participants in the "Third Japan-U.S. Manufacturing Research Exchange," to be held July 23-27, 1990, in Nisshin, Japan. The meeting will take place under the auspices of the U.S.-Japan Cooperative Science Program. The central goal of the exchange is to form the foundation for a broad-based, continually regenerated program of manufacturing research cooperation between the two countries. Specifically, the participants expect to develop detailed research programs and forms of cooperation between Japanese and American scientists and engineers for a period of approximately three years in two areas of interest: (1) intelligent manufacturing control and (2) product realization. Each side has organized a committee of experts to prepare papers in these areas. For the U.S., the National Research Council's Manufacturing Studies Board, through its Committee on Research Directions and Needs in U.S. Manufacturing, is responsible for organizing participation in the meeting and distributing the results of the exchange to the manufacturing research community. This committee is chaired by Dr. Cyril M. Pierce, General Manager, Manufacturing and Quality Technology Department, GE Aircraft Engines. The Japanese organizer is Professor Toshio Sata, Executive Director, Institute of Physical and Chemical Research (RIKEN), Wako, Japan. This will be the third in a series of U.S.-Japan meetings, initiated in 1986, to encourage cooperation between the two countries in manufacturing research. Representatives from both academe and industry in each country will attend.